SGER: Planning Grant to Investigate the Incorporation of Born Digital Records into an EFOIA Request Processing System: Current Practices and Promising Technologies

EIA-0138549-David Wallace-University of Michigan-SGER Planning Grant to Investigate the Incorporation of Born Digital Records into an EFOIA Request Processing System: Current Practices and Promising Technologies

This grant will support preliminary explorations in integrating 10 datasets, some digital and some paper, related to the modeling of the flow of freight carried by trucks, rail, and ship in the greater Los Angeles area. The collaboration will be between information scientists and experts in transportation planning and policy and will involve the collaboration of several government agencies.